A New Model for Turbulence Based on the Hydrodynamics-Electromagnetism Analogy

Abstract Proposal Number: CTS-9619232 Principal Investigator: Karniadakis This is a proposal to explore a different approach to turbulence modeling based on a new generalized analogy between hydrodynamic turbulence and electromagnetism. The new analogy originates from the Maxwell equations, which completely describe the electromagnetic fields in all cases and not simply the induction laws, which have been previously used to develop the classical analogy. The new correspondence is between vorticity and magnetic field, and Lamb vector and the electric field. Appropriately averaged, as in standard large-eddy simulation (LES) approaches, the new system leads to a linear set of equations, which reduces to a second-order wave equation for the locally averaged vorticity and Lamb vector fields. Because of the linearity of the system in these variables, the superposition principle can be used to construct solutions for complex-geometry flows using analytical/numerical solutions in simpler domains.